Graduate Research Traineeship Program: Graduate Fellowshipsin Computation and Neural Systems

This project will support five graduate research traineeships over a seven year period in the Computation and Neural Systems (CNS) Option at the California Institute of Technology. The CNS option brings together biologists, engineers, computer scientists, and physicists with an interest in learning how computation is done by the nervous system, and applying that knowledge to the design of computers. Work in this area is expected to lead to significant advances in many engineering applications as well as neurobiology.